Collaborative Research: Understanding Sulfur Behavior in the Volcanic Critical Zone: Implications for Gas Monitoring

Some recent volcanic eruptions have caused great harm including deaths (e.g., White Island volcano, New Zealand). These events show that volcanoes are not understood well enough to accurately predict eruptions. Sulfur is one of the most abundant elements in volcanic gases. Recent work shows that sulfur gases can change before volcanic eruptions. This means sulfur gases could be useful for eruption forecasting. This research will investigate sulfur in volcanic gases, rocks, and magma at well-monitored volcanoes. Researchers hope to understand sulfur behavior as it moves from the magma to the surface. That will help with hazard assessment and eruption forecasting, including in North America. Additionally, sulfur is important for the formation of valuable metal deposits. Researchers will calculate how much sulfur is stored in volcanoes worldwide. This will help them understand the development of ore deposits. This proposal will support inter-institutional and inter-agency collaboration, as well as student education and training.

Dramatic variations in volcanic gas ratios linked to volcanic activities have been observed at hydrothermal-magmatic systems. However, the specific processes driving these variations at volcanoes prone to explosive eruptions are poorly understood. Of particular interest is sulfur, which occurs in gas, dissolved, and solid forms. This research will investigate the dynamic behavior of sulfur in the volcanic “critical zone”, which is defined as the heterogeneous hydrothermal-volcanic environment between magma and surface. Complex multi-phase interactions in this “critical zone” determine the compositions and fluxes of gas emissions, modulate eruptive activity, provide favorable redox conditions for microbes, and sequester sulfur and certain elements in the crust. This project will investigate well-monitored active volcanoes prone to explosive eruptions. Combining sulfur stable isotopes, gas compositions and fluxes, melt inclusions, and geochemical modeling, the researchers will: 1) Characterize magmatic degassing into the critical zone; 2) Explore time series variations in sulfur isotopes of volcanic gases to evaluate sulfur reactions and sources in dynamic magmatic-hydrothermal systems; and 3) Constrain rates of sulfur sequestration in the upper crust and the resulting implications of this widespread process on subduction zone volatile budgets and ore deposition. This project will advance our understanding of gas monitoring signals at hydrothermal-magmatic systems prone to dangerous phreatic/phreatomagmatic eruptions, which is crucial for hazard assessment and eruption forecasting.